Simulations and Models for Sedimentation at Small Reynolds Numbers

This award supports simultaneous mathematical and numerical study of
various low Reynolds number sedimentation flows. These systems are
complicated by the long range nature of the fluid flows generated by
individual solid particles as they fall, requiring efficient
algorithms for particle simulations, introducing variable nonlinear
coefficients of different dependencies into model continuum partial
differential equations, and leading to nontrivial distributions in the
statistical mechanics of the interacting particles. In this work,
efficient algorithms specialized to dilute wall-bounded sedimentation,
previously developed to investigate the scaling of velocity
fluctuations in monodisperse sedimentation, will be used to provide
quantitative data for comparison with existing and newly-developed
kinetic and fluid models. The simulations will be generalized to
include effects due to inclined channels, polydispersity,
non-spherical particles, and small non-zero Reynolds numbers.

Interactions between solid particles sedimenting in a fluid are
important in many natural and industrial processes, including the
settling motions of silt in rivers and dust in the air, and in
applications which use centrifugal or gravitational separation such as
those for proteins, minerals, waste water, and recyclable plastics.
While the mathematics describing the interactions between individual
particles and the suspending fluid are well known, simulations of
large scale flows based on these rules are computationally
prohibitive. It would be far preferable to use macroscopic models
which are less costly to solve because they neglect the detailed
motion of individual particles. Unfortunately, existing macroscopic
models for sedimentation have very limited ranges of validity. This
work will consider restricted classes of sedimentation systems in
which efficient computation of the interactions between large numbers
of particles remains possible because of simplified geometries and
limits for the mathematical rules describing particle motion. Results
will be used to help identify improved macroscopic models to describe
both these restricted classes and more general sedimentation flows.
Ultimately, this work will lead to improved equations for modeling
sedimentation flows in nature and for better design of separation
processes based on sedimentation.